Fault Plane Solutions for Western Hawaii and the Kaoiki Area

The first goal of this research is to determine fault plane solutions for earthquakes with magnitude greater than 3.0 in western Hawaii. This region experienced a magnitude 6.9 earthquake in 1951 but little work has been done on a seismo- tectonic model or focal mechanisms for the hypocentral area. The work will be a test of the hypotheses that the upper crust in Western Hawaii is being pushed westward over a weak oceanic sediment layer and that western Hawaii has a common stress tensor orientation. Recent earthquakes should also allow investigation of the time variability of the stress tensor. From other work, these researchers have anticipated another magnitude 6+0.5 earthquake in this area within a 3-year time window centered on 1994. This research is a component of the National Earthquake Hazard Reduction Program.